Mathematical Foundations for a Design Methodology Based on Kinematic Mappings

This is a theoretical project to obtain a new design methodology for mechanism design. The method is based on the technique of kinematic mappings. It can be shown that a kinematic mapping converts the set of possible positions of a mechanism to an image curve, surface, or solid in a space whose dimensions depend on the number of degrees of freedom of the system. By determining the differential properties of the image, this information can be used to design spatial mechanisms and manipulators in a more efficient manner than is currently used. This project develops those differential properties and thus establishes the mathematical foundations for a design methodology based on kinematic mappings.